Conference Support for BEM 15; to be held August 10-12, 1993in Worcester, MA

This grant is to assist in the support of an international symposium (The Fifteenth Boundary Element Method International Conference, BEM 15) on boundary element methods to be held August 10 - 12, 1993 at Worcester Polytechnic Institute, Worcester, MA. The aim of the symposium is to appraise the state-of-the-art and set directions for new research in the field of boundary element methods for the year 2000. It will facilitate a dialogue between engineers and scientists working in a variety of technological fields that employ boundary element methods. The conference will result in an authoritative high quality proceedings volume which will serve as a basic reference on this subject.*** //